Organization of the 1995 Semiconductor Lasers: Advanced Devices and Applications Topical Meeting, August 21-23, 1995, Keystone, CO

9522191 Hennage Funds will be used to support international travel to the new topical meeting "Semiconductor Lasers: Advanced Devices and Applications" to be held in Keystone, CO in August 1995. ***